A Nondestructive Technique for Assessing Thermal Shock Damage in Ceramics

Rapid changes in ambient temperature (thermal shock) induce stress in a material., For brittle components, these thermal stresses can result in microcracking or mechanical failure. The objective of this research is to use elasticity measurements to assess damage due to the multiple (repeated) thermal shocking of ceramics, using both liquids and gases (including air) as quenching media. Unlike fracture testing, these nondestructive elasticity measurements allow one to monitor the evolution of thermal shock damage due to repeated thermal cycling. The significantly higher precision of the elasticity measurements compared to fracture measurements will allow accurate determination of the successive degradation of the ceramic upon thermal cycling, especially at the initially low levels of thermal shock damage.